Taking the Fairchild Herbarium (FTG) to the Web

The Fairchild Tropical Garden has decided that it is necessary to computerize its entire (nearly 83000 specimen)herbarium collection and has begun to accomplish this task using a novel data entry interface, developed over the last year, and a dedicated group of volunteers doing the actual data entry. Potential users from local land managers to taxonomists around the world have been adamant that a web based version with pictures of each specimen and label would be extremely useful to them for identification and research. With the addition of a new Curator of the Herbarium the Garden now has the technical skills to accomplish this task. The Garden has most of the resources that are needed to complete the database. This project will support the acquisition of the web server itself, another digital camera to speed entry of data and provide partial support for a collection manager to check data and organize volunteers.